A Cross-Flow Filtration Reactor for Supercritical Oxidation of Wastewaters

This is an award to provide support for purchase of engineering research equipment to permit study of solid- fluid separation operations relating to potential applicability of cross-flow filtration to oxidation of organic material in aqueous suspension or solution using a supercritical water oxidation process. Research to be conducted includes determination of the solid separation efficiency of the cross-flow process, behavior of the catalyst, fouling and heat transfer characteristics, and corrosion issues. The proposal leading to this award was submitted in response to the Program Announcement and Guidelines NSF 90-146, Research Equipment Grant Program. Results are expected to provide guidance for engineering design of processes and systems to reduce or eliminate the pollutional impact of wastewater and sludges on environmental quality.